Polar Anglo-American Conjugate Experiment

This grant provides for the continuing operation and analysis of data from the high frequency (HF) coherent scatter radar that was installed at Halley Bay Station, Antarctica under a previous grant. The radar, part of the Polar Anglo-American Conjugate Experiment (PACE) is magnetically conjugate to a nearly identical radar operated at Goose Bay, Labrador. Funding is provided for the Goose Bay radar by the Atmospheric Science Division of NSF. In addition to the conjugate objective, the radar has a field of view that includes the region above South Pole Station. HF coherent radars can detect and measure the velocity of patches of excess ionization in the upper atmosphere, and as a consequence they are very useful for studying the dynamics of the polar cap region. The PACE radars are for the first time providing the means to study the simultaneous behavior of the ionosphere in both the northern and southern polar caps.